Workshop on High Speed Optical Processes and Opto-ElectronicDevices Based on Compound Semiconductors

Optoelectronics has progressed to the stage of being practical for some applications. These include communications, storage, and certain signal processing techniques. These developments depend critically upon a well integrated research approach including materials, devices, and systems considerations. This is expected to be even more important for future developments in the area, particularly those relating to the controversial area of optical computing. The central issue of materials will be addressed, particularly the technical properties, availability to researchers, and new directions with perspective of the lightwave technology area. A second issue to be addressed is that of systems architecture. This is becoming increasingly important as lightwave systems increase in emphasis and as highly precise technology developments allows the finer aspects of systems principles to not only be tested but to be implemented. The most obvious is that of coherent communications. Also, however, are computational architectures, neural adaptive architectures, and the entire area of nonlinear systems. The workshop will provide guidance for future planning of the lightwave technology program, and will provide a forum for dicussion of issues relevant to the quantum electronics field generally. The attendance of foreign specialists will allow a broader perspective and a view of the efforts of other countries in this area. It is expected that closer collaboration among university researchers will be discussed.